Research in Statistics

In this project, the principle investigator (PI) proposes
research on four important topics aimed to develop methods
of statistical inference and model diagnostics in cases of
correlated observations. These topics are: (i) partially
observed information and inference about non-Gaussian
linear mixed models; (ii) iterative weighted least squares
procedures for analysis of longitudinal data; (iii) A test
of global maximum for dependent observations; and (iv)
generalized linear mixed model diagnostics. Linear mixed
models are widely used in practice for correlated observations.
A typical assumption regarding these models is that the
observations are normally distributed. However, the normality
assumption is likely to be violated in practice. It is known that
normality based methods such as REML still produce consistent
estimators even if normality fails. However, the estimation
of standard errors of these estimators is complicated, because
for non-Gaussian data the asymptotic covariance matrix of the
Gaussian estimator involves additional unknown parameters.
Project (i) aims to completely solve this long-standing problem
of practical interest. Furthermore, project (ii) proposes an
iterative weighted least squares procedure for computing
efficient estimators of the regression coefficients in linear
models for longitudinal data analysis and studies its properties.
Project (iii) aims to extend a method developed in the i.i.d.
case for checking whether a root to the likelihood equation
corresponds to the global maximum of the likelihood function.
Project (iv) develops goodness-of-fit tests and methods of
informal model checking for generalized linear mixed models.

Correlated responses are often encountered in practice. For
example, in medical studies repeated measures are often collected
from the same individuals over time. It would be reasonable to
assume that correlations exist among the observations from the
same individual. Linear and generalized linear mixed models are
two important classes of statistical models widely used in cases
of correlated observations. For linear mixed models methods of
inference have been developed, but mostly under the assumption
that the observations are normal (or Gaussian). However, the
normality assumption is likely to be violated in practice. The
PI aims to develop a powerful method for inference about
non-Gaussian linear mixed models. For generalized linear mixed
models, the PI proposes to develop methods of model checking
that fills an important gap in the applications of these models.
The methods developed are likely to have impact in other fields
of statistics as well as in fields such as biomedical research,
genetics, biology, economics, education and social science.